Mathematical Sciences Computing Research Environments

The Department of Mathematics and Statistics at the University of New Mexico will purchase hardware and software to equip a visualization and animation laboratory dedicated to the support of research in the mathematical sciences. The laboratory will be used by several ongoing research projects including: 1. Numerical Analysis of Dynamical Systems 2. Techniques in Automatic Grid and Code Generation 3. Investigations of the Dynamics of Wall-Bounded Flows 4. Analysis and Computation of the Flow of Mixtures.